SCI: Condor DB: Integrating Condor and DBMS Technology

This proposal describes development and research to bring database management system technology into the realm of the batch computing system known as Condor. The work is described in three phases: the first phase instruments Condor with a data model for underlying support of Condor's operational data, with a web-based query tool for administrators of Condor pools; the second phase is essentially a re-factoring of Condor code (in particular the Condor job scheduler/manager) to make it DBMS-reliant in terms of offloading certain functions; and the third phase attempts to lower the barrier to DBMS use for scientists by moving DBMS functionality and capability to the point of application execution.